Markov Chain Algorithms for Computational Problems from Physics and Biology

C-CR 0105639
Dana Randall
"Markov Chain Algorithms for Computational Problems from Physics and Biology"

This research in Markov chain Monte Carlo methods has three
primary goals: (i) developing new, general techniques for
analyzing convergence rates of Markov chains; (ii) designing rigorous,
efficient algorithms for specific computational applications, focusing
on problems from statistical physics and biology with relevance
to computer science; and (iii) exploring the connections between
the phase structure of physical models and the inherent limitations
of various sampling methods.

The research is concentrated in these areas. 1) Coupling has been
a very popular method for bounding the convergence rates
of Markov chains based on local updates, but only works in
restrictive settings. Heat bath algorithms, which allow possibly
nonlocal updates, appear to circumvent potentially bad situations
arising from simpler chains, but tend to be prohibitively complex
for analysis. Decomposition theorems provide a new tool which
allow a Markov chain to be broken into pieces whereby a hybrid
approach can be used to analyze each piece. The investigator
studies how these methods can be used together to approach some
new sampling problems. 2) Computational biologists have developed
a Turing-universal model of computation based on Wang tiles using
double-stranded DNA. New efficient sampling algorithms for some
of these simple models are explored with the goal of providing ways
to test the model predict outcomes of experiments.
3) The research additionally explores the connection between
rapid mixing of locally defined Markov chains and the uniqueness
of the Gibbs state of the underlying physical system, also
characterized by the lack of a phase transition. Knowledge of
this phase structure is used to develop algorithms which will allow
sampling below the critical point, where local Markov chains
are inefficient.